Investigating the International Experiences in STEM Graduate Education and Beyond

This project will support a one and one-half day workshop to enhance understanding of the impact of international research experiences for U.S. students and postdoctoral researchers in science and engineering fields. Until now, we have only limited knowledge of the impacts of these experiences. This workshop should result in parameters for a research agenda that will produce new knowledge about them. Questions addressed will include: (1) What are the outcomes of international exchanges? (2) What do we know about the effectiveness of collaborations and exchange programs? (3) What factors define the types of exchanges and shape the outcomes? (4)What methods and tools exist? Do we need new ones? Included in the workshop will be researchers, practitioners, doctoral students and postdocs from the U.S. and abroad.

This workshop will help define what types of research questions can be asked and what methodologies can be used to assess the impact of international research experiences for graduate students and postdoctoral researchers in science and engineering fields. The results of research arising from this agenda will help members of the science, engineering, and education communities to design and administer more effective and successful research programs for students and postdoctoral researchers.